Novel Chromatographic Bonded Phase Platform and Methods and Processes

Photo-induced immobilization will be used for the preparation of thin pin-hole free chromatographic surfaces whose silanol sites are inactivated for use in high performance liquid chromatography (HPLC). To demonstrate this chemical platform technology, surfaces will be prepared and chromatographically evaluated using both small and large molecules as standard probes. With judicious selection of monomers, new biofriendly (low non-specific binding) stationary phases can be prepared, allowing selectivity to be influenced by incremental changes in the character and chemical composition of the separation surface. Because the chemical platform is not dependent on specific attachment chemistries, any surface may be employed thereby utilizing certain intrinsic properties beneficial to a specific separation process. Successful completion of Phases I and II will provide the technical foundation for the commercialization of separation products developed and produced by photo-induced crosslinked polymerization not limited to any particular surface type.